Integration of X-ray Micronanalysis and Image Processing between a New Associate Degree Program in Electron Microscopy and Other Disciplines

9452553 Boda The major thrust of this work is to integrate a unique, newly implemented two-year Associate Degree Program in Electron Microscopy and its laboratory facility with other instructional areas within our college. Target areas for integration include: (1) a two-year program in Biotechnology, (2) a two-year program in Welding in particular Metallurgy courses, (3) Chemistry courses, (4) the Biological Sciences, (5) Geology, (6) two-year programs in the Health Professions, and (7) Image Processing. The mechanism of integration will involve: (1) the initiation and expanded use of elective research credits creating joint projects between electron microscopy students and students from other areas, (2) faculty and students from other disciplines using our microscopy laboratory facility, and (3) the microscopy facility being used for demonstrations and instructional presentation by faculty from other instructional areas. In addition, we hope to implement a course for electron microscopy students involving projects supervised by industry and/or other educational institutions. This goal, if realized, will allow non-microscopy students the rare opportunity to discover and understand how electron microscopy impacts their areas of major study. The exchange will afford microscopy students a valuable opportunity to experience the broad range of microscope utilization by the many disciplines and academic areas routinely using electron microscopy. The electron microscopy laboratory facility is adequate to meet this increased student and faculty use except for x-ray microanalysis and image processing capability. Currently only one scanning electron microscope is equipped with both capabilities. Our plan is to obtain an x-ray analyzer capable of image processing and interfacing it with two x-ray detectors (one is already on hand) installed to two scanning electrons microscopes (also on hand). Thus, two microscopes can have this capability for little more cost than a sin gle microscope installation. ***